NSF Convergence Accelerator Real-World Chemical Sensing Applications: Innovative approach to monitor methane emissions from livestock using an advanced gravimetric microsensor

The U.S. dairy industry makes a substantial contribution to the country’s economy, and livestock health is critical for a resilient, profitable dairy industry. The real-world application of this project is to provide direct on-farm monitoring of cow metabolic state and, specifically, subclinical diagnosis of ketosis, an indicator of compromised metabolic function. The incidence rate of ketosis is as high as 40% to 60 % in early lactation cows, and early diagnosis allows cost-effective management and prevention. By preventing the onset of full ketosis, the product developed in this project, RuMeter-K, will improve animal health and the economic and environmental sustainability of milk and beef production. The platform technology being developed has extensive application in the precision livestock industry and potentially in the field of exhalomics and animal health diagnostics more broadly. In addition to the technological and economic broader impacts, the project offers hands-on research opportunities for college and post-graduate level trainees and engagement of middle and high school students in existing on-farm programs.

The project focuses on chemical sensing technology for the dairy industry and aims to develop a novel microsensor-based solution able to detect the metabolic disorder hyperketonemia (ketosis) at a subclinical stage in dairy cows, for widespread on-farm deployment and economic benefit across the US dairy industry. Ketosis in dairy cows is responsible for impaired immune function, compromised animal health and fertility, significantly reduced milk production and, hence, decreased farm revenue. The proposed solution, RuMeter-K, will quantify acetone levels in a cow’s breath, a precise marker of ketosis, when worn as an ear-tag. Incorporating a novel microsensor array, a bespoke algorithm and a user-friendly software display, RuMeter-K will provide farmers with continuous monitoring for signs of ketosis in individual dairy cows, enabling subclinical detection and early intervention. RuMeter-K is anticipated to be highly attractive as a licensable option that includes continued product development among the agriculture technology industry.